SBIR Phase I: Automatic Body Measurement for Mass Customization of Garments

*** 9760791 Certain This Small Business Innovation Research (SBIR) Phase I project will investigate methods for human body modeling and automatic extraction of body measurements from body scans. The goal of the research is to devise algorithms that are capable of merging and interpreting multiple range images capturing the body in slightly different postures. Mass customization is expected to play a significant role in the future of the garment industry. Body scanning and automatic body measurement extraction will be important components of mass customization systems. The proposed algorithms will allow construction of small and inexpensive body scanners. ***